GOALI/Collaborative Research: A Control Oriented Charge Mixing and Hybrid Combustion Model for SI-HCCI Dual Mode Engines

The research objective of this Grant Opportunity for Academic Liaison with Industry (GOALI) Collaborative Research project is to develop accurate yet tractable dynamic models for SI (Spark Ignited) and HCCI (Homogeneous Charge Compression Ignition) dual mode engines to enable model-based real-time control and optimization of this novel and efficient internal combustion engine. Specifically, we propose a novel SI-HCCI hybrid combustion model that incorporates both SI and HCCI combustions and a new charge mixing model to capture the fluid dynamics and chemical composition of the engine. These two models will be integrated with a feedback structure, that is, the output of the charge mixing model is the input to the hybrid combustion model and the output of the combustion model is fed back to the charge mixing model.

The research will enable the real-time model-based control and optimization of SI-HCCI dual mode engines, which is critical for future clean and efficient automotive propulsion systems. This engine technology will significantly reduce the national oil consumption of both personal and commercial transportations. It will also reduce harmful emissions and mitigate the impact on climate change. This project's approach for developing and validating the hybrid SI-HCCI model can be applied to other type of engines and dynamic systems, where the phenomenological or computational models are not suitable.